Advanced Technological Education Television (ATETV.ORG)

The Advanced Technological Education Television (ATETV.org) project produces 48 short multi-disciplinary web-based television episodes that are intended to increase the relevance of technician education to modern practices and assure an increased number of students entering the high performance workplace with enhanced competencies. Combining the power of video and the Internet to link education, government and industry, ATETV extends student learning beyond the classroom walls and provides a window into careers and workplace skills.

The project expands on the successes of current ATE Centers and projects by featuring weekly episodes that broadcast via the web. Each episode is designed to engage and impact prospective and current technicians with the real worlds of technology and industry. This student-centered video series is produced under the guidance of a National Educational and Professional Advisory Board and a National Student Advisory Board with resources from the AACC, ATE National Centers, successful ATE projects and industry.